Organometallic Complexes of the Iron Triad Metal with Nitrido, Imido, Oxo, or Sulfido Ligands

9308450 Shapley This project, supported by the Inorganic, Bioinorganic and Organometallic Chemistry Program, is concerned with the synthesis and reactivity of high oxidation state Fe, Ru, and Os complexes. A major focus will be on new complexes that contain two multiply bonded ligands (oxo, sulfido, imido), which are expected to be effective for atom (O, S) or group (NR) transfer to unsaturated hydrocarbons. Also to be investigated are coordinatively unsaturated ruthenium based olefin polymerization catalysts, unique chromium-osmium heterobimetallic oxidation catalysts and their use in kinetic resolution of alcohols, and novel high oxidation state organoiron derivatives. %%% This project focusses on the design and synthesis of new transition metal containing molecules that are predicted to have unique, and potentially useful, chemical reactivities. These compounds may ultimately be utilized in the synthesis of new pharmaceuticals, and as catalysts for the preparation of polymers. ***